Workshop on Riemannian and Non-Riemannian Geometry; August 2009, Indianapolis, IN

Abstract

Award: DMS-0943046
Principal Investigator: Zhongmin Shen

Riemannian geometry plays an important role in many areas of
mathematics and natural science. Recent study also shows that
non-Riemannian geometry has applications in mathematical
psychology, general relativity, PDE, navigation problems, imaging
process, and module spaces, etc. Riemannian geometry provides
some basic tools to study non-Riemannian spaces. There are also
new methods developed exclusively for the investigation of
non-Riemannian spaces.

This workshop will provide a platform for geometers to
communicate with each other and discuss the research projects for
the future. This workshop will also provide a good opportunity
for mathematicians to understand non-Riemannian geometry and find
motivation to work in this area. The conference web site is
http://www.math.iupui.edu/~zshen/conferences/workshop2009/.